Drexel University Access to vBNS

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for an OC-3 connection to enhance and accommodate research needs for Drexel University by establishing a connection to the Very High Performance Backbone Network Service (vBNS). The award, coupled with existing vBNS initiatives at the University of Pennsylvania, will leverage resources and facilitate research in the greater-Philadelphia region. Projects in this proposal include: GRAPE-6 (research into areas of star cluster dynamics and stellar dynamical simulations), Sources of Gravitational Radiation, Numerical Modeling, Computational Astrophysics, DMS chemistry in the marine atmosphere, Aerosol Characterization Experiment, Pacific Exploratory Mission, Advanced Cluster Computing, and the Hospital University Business School (HUBS) initiative. With this high performance network capability Drexel University will expand current research and collaboration with both academic institutions and federal laboratories. Collaborating institutions on this project, include: Princeton University, University of Tokyo, University of Maryland, NCSA, JPL/Caltech, University of Texas at Austin, Syracuse University, LSU, SDSC, NASA/Goddard, University of Chicago, Argonne National Laboratory, Rensselear Polytechnic Institute, University of Arizona, and the Office of Naval Research.